German-USA Collaborative Symposium - Growing Connections in Computational Neuroscience

German-USA Collaborative Symposium, Munich, June 8-11, 2008

This proposal concerns the organization of a binational meeting of researchers in the field of computational neuroscience from the USA and from Germany, to be held in Munich, June 8-11, 2008. The meeting will combine the exchange of current scientific ideas in the field with an exploration of possibilities for strengthening collaboration between researchers from the two countries. The meeting will be attended by US and German researchers, and representatives from private and governmental German and US funding organizations.